CBMS Regional Conference in the Mathematical Sciences - Model Uncertainty and Multiplicity

This award will support an NSF/CMBS regional conference to be held at the University of California at Santa Cruz in the summer of 2012 on the topic of statistical model uncertainty and multiplicity. The principal speaker will be Professor James Berger from Duke University. This award will support 29 participants at different stages of their careers.

The conference will address longstanding methodological challenges of statistical model uncertainty and multiplicity along with the recent developments in the area that have been driven by 21st century scientific applications such as complex models and large data sets. The conference aims to attract new researchers to this field by providing a well-organized overview and also intends to strengthen links and collaborations between multiple groups of researchers in the western United States.